Learning Trajectories as a Complete Early Mathematics Intervention: Achieving Efficacies of Economies at Scale

U.S. proficiency in mathematics continues to be low and early math performance is a powerful predictor of long-term academic success and employability. However, relatively few early childhood degree programs have any curriculum requirements focused on key mathematics topics. Thus, teacher professional development programs offer a viable and promising method for supporting and improving teachers' instructional approaches to mathematics and thus, improving student math outcomes. The purpose of this project is to test the efficacy of the Learning and Teaching with Learning Trajectories (LT2) program with the goal of improving mathematics teaching and thereby increasing young students' math learning. LT2 is a professional development tool and a curriculum resource intended for teachers to be used to support early math instruction. The LT2 program modules uniquely include the mathematical learning goal, the developmental progression, and relevant instructional activities. All three aspects are critical for high-quality and coherent mathematics instruction in the early grades.

This project will address the following research questions: 1) What are the medium-range effects of LT2 on student achievement and the achievement gap? 2) What are the short- and long-term effects of LT2 on teacher instructional approach, beliefs, and quality? and 3) How cost effective is the LT2 intervention relative to the original Building Blocks intervention? To address the research questions, this project will conduct a multisite cluster randomized experimental design, with 90 schools randomly assigned within school districts to either experimental or control groups. Outcome measures for the approximately 250 Kindergarten classrooms across these districts will include the Research-based Elementary Math Assessment, observations of instructional quality, a questionnaire focused on teacher beliefs and practices, in addition to school level administrative data. Data will be analyzed using multi-level regression models to determine the effect of the Learning Trajectories intervention on student learning.

The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.